Internet Connection

The plan for connectivity is clear and comprehensive and illustrates a well-rounded use of networking. Some 15 areas are identified as potential beneficiaries. The likely impact seems very positive. The technical portion is sound and the local infrastructure is in place. The PI demonstrates considerable expertise. Future support seems assured. Recommend funding for one year at $30,000.